Computer-Interfaced Absorbance Spectrophotometry in Undergraduate Chemistry Laboratories

In the last twenty years, expensive scientific instrumentation has become essential in chemistry. The chemistry is currently involved in an intensive effort to increase the time undergraduates spend using modern instrumentation. This project increases our capability in the area of UV/Visible absorbance spectrophotometry, ones of the most versatile techniques in the laboratory. As part of this project, improved and new experiments are introduced in organic, physical chemistry, biochemistry and instrumental analysis. Computer interfacing introduces students to powerful data analysis techniques, and allows them to spend more time critically evaluating their results. Given Lehman's two-thirds minority and two-thirds female student population, these improvements in the department's programs should help address the current underrepresentation of these groups in chemistry and related fields. The institution is matching the NSF grant with an equal amount of funds.